Covalent Derivatives of Oxide Molecules and Solids

9320190 Klemperer Univ. of Illinois - Urbana Dr. Walter G. Klemperer, Chemistry Department, University of Illinois - Urbana, is supported in the Inorganic, Bioinorganic, and Organometallic Chemistry Program, for studies of relatively simple metal oxides and solids that incorporate key features of more complex systems of practical importance. The oxidation of olefin-polyoxoanion complexes will be investigated with the aim of developing epoxidation catalysts. New platinum and palladium polyoxoanion complexes will be prepared and their ability to promote olefin polymerization and carbon-hydrogen activation will be probed. Molecular titanates and zirconates will be synthesized and their ability to bind organometallic cations and sulfate will be evaluated. Finally, the solid state reaction chemistry of a series of organometallic compounds will be developed. The significance of the research lies in part in developing an understanding about fundamental processes of industrial and biological significance. These include the activation of organic materials, their reactions with oxygen, and their polymerization. In addition, an emphasis will be placed on discovering entirely new types of materials with the hope and expectation that new and useful applications will be developed.